1993 Conference on Science Education for Persons with Disabilities; Kansas City, MO; March 29-31, 1993

This project will convene a two-day conference prior to the 1993 National Science Teachers Association (NSTA) Convention in Kansas City, Missouri. The purpose of the conference is to educate science teacher educators, science teachers, and professionals providing services and/or equipment to persons with disabilities as to what resources and strategies are effective in providing science education for students with disabilities. General goals of the conference are: o to assess the current state of conditions concerning science for persons with disabilities and to provide recommendations to Federal, state, and local agencies, institutions and organizations concerning science education for disabled students; and o to increase awareness of technological advances and contributions which can enhance and contribute to the learning and participation of disabled students. The conclusions and outcomes developed by participants in working groups will be synthesized and shared with all attendees. A position statement along with recommendations for improved practice will be communicated to the participants and their responses will be solicited. Suggestions in areas of career concerns, teacher education, methods, materials/programs dissemination, evaluation and assessment, and educational organizations and agencies will be compiled and from the basis of the document which will summarize conference proceedings. Conference participants will be asked to complete a questionnaire assessing the effectiveness of the conference. A follow-up questionnaire will be mailed to all participants one year following the conference. The purpose of this survey will be to determine what changes have taken place in the participants' schools or regions to improve the quality of education and services for students with disabilities.